Fundamental Physics and Cosmology

A program of research in theoretical cosmology will include studies of the
formation and evolution of various topological defects -- special
structures such as domain walls, strings and monopoles -- in the universe.
These remnants of the big bang could still exist in the present universe
and could produce a variety of observational effects. A discovery of
topological defects would provide important information both about
elementary particle physics and about the early universe.